Construction of a Yeast Strain Capable of Malolactic Fermentation

Wine is the product of the fermentation of grape juice by both yeast and bacteria. Strains of the yeast, Saccharomyces cerevisiae, convert sugars to ethanol. Strains of lactic acid bacteria convert malic acid to lactic acid. The latter so called malolactic fermentation is important for the reduction of malic acid content in the wine prior to bottling, and for improving the palatability of the wine. Since the bacteria fermentation during or after the yeast fermentation are not always consistent and difficult to control, it is attractive to consider endowing yeast with the ability to convert malic acid to lactic acid, thus eliminating the need for a bacteria fermentation. This proposal seeks to isolate and characterize the malolactic enzyme gene from Lactobacillus delbrueckii and to express the gene at an appropriate level in a commercial strain of S. cerevisiae. The research will enable the wine-maker to have better control over his process.